MRI: Acquisition of a field emission scanning electron microscope with cryo transfer and EDS systems

This award provides funds to purchase a Field Emission Scanning Electron Microscope (FESEM) with a cryo transfer stage and an energy dispersive x-ray spectroscopy (EDS) system for the Electron Microscopy Laboratory (EM Lab), a multi-user facility at the main campus of the University of Connecticut. The new instrument replaces a heavily used 15-year old FESEM, thus ensuring continued FESEM availability and providing new capabilities to enhance and expand both research and research training at the University of Connecticut. The FESEM provides images of a variety of materials at resolutions previously unattainable in this facility. A charge compensation system minimizes image degradation in poorly conducting samples. A backscatter detector and EDS system provide compositional information and the ability to detect immunogold particles conjugated to macromolecules within cells and tissues. The cryo transfer system allows samples to be rapidly frozen, transferred to the microscope and viewed at high resolution in the fully hydrated state, with minimal contamination by water or hydrocarbons. Controlled sublimation of water at the surface reveals surface morphology without major structural change and identifies the location of water in the sample. These features are especially beneficial for study of highly hydrated samples such as plant tissues or biofilms, which tend to shrink and collapse with removal of water. The cryo transfer system also allows samples to be fractured and/or coated after freezing and prior to transfer and viewing. The major users of the new instrumentation represent a wide range of disciplines from evolutionary biology to bioengineering. The group includes both senior investigators with well-established programs and junior faculty members developing their careers. One senior faculty member is from Connecticut College, a predominantly undergraduate institution with no FESEM instrumentation. The projects these investigators are carrying out include studies of water transport and conservation in woody plants and bryophytes, systematics of tapeworms in elasmobranchs, morphology of green algae, ecology of desert biotic crusts, structure of porous metal oxide nanoparticles, molecular biology and physiology of plant cell walls, ecology and biogeography of freshwater chrysophytes, nucleation of minerals in marine biofilms, and biomechanics and microstructure of heart valves.

This system provides state-of-the-art electron imaging capabilities to a highly active and multidisciplinary group of faculty and students, enhancing both research and research training. Their research is helping to identify and classify new species of tapeworms found around the world. It is characterizing microbe-mineral interactions at the interface between the bio- and lithospheres that are critical in the search of the origin of life, life on other planets, the characterization of natural reservoir (porosity and permeability), and carbon sequestration. Studies of a variety of plant species are contributing to understanding of the ability of land plants to withstand desiccation and transport water and of the composition and function of the plant cell walls. Structural data on chrysophytes and diatomes found in Arctic lake systems of the early Cenozoic are providing an unprecedented opportunity to understand how Arctic ecosystems may change under future greenhouse climates. Structural and compositional studies of porous oxide catelysts and octahedral molecular seive manganese oxides are potentially useful for oil spills and remediation of pollutants. Studies of the fibrous structure of heart valves are providing data to help generate computational models of how human heart valves respond to minimally invasive heart valve repair and replacement. The purchased equipment is helping to drive new research initiatives and promote collaborative research within this group of investigators and beyond.